ExFiles: An Online Science Exhibit Community

Following their experience with the 2003 NSF-funded conference, "Best Practices in Science Exhibition Development," the Association of Science-Technology Centers (ASTC) is creating for informal science education practitioners a dynamic online system, "ExFiles," for contributing to, using and conducting communications about a database on exhibitions. At least 1,000 practitioners are expected to use the site over the course of the three-year project, which will be sustained by ASTC after the grant period. The website is being populated initially with a set of at least 40 exhibitions representing a variety of scientific domains, sizes and interpretive and design strategies. Promotion of the site is being assisted by several associations: National Association of Museum Exhibitions, Association of Children's Museums, American Association of Botanical Gardens and Arboreta, American Zoo and Aquarium Association and the European Network of Science Centres and Museums.